RAPID: Flood-related pathogen risk models appropriate for low resource settings

1249250
Remais

Recent severe flooding in southern China has affected millions of people in Hunan province and has raised the threat of waterborne infectious diseases. Pathogens can be mobilized by flood conditions as urban sewerage systems and rural latrines overflow, and manure from agricultural animals is washed into rivers and streams. This RAPID project aims to improve our understanding of, and our ability to predict, the microbiological risks that follow a major flood event. Emergency responders are faced with the significant challenge of estimating the scale "in time and space" of microbiological risk following a flooding event, especially where environmental data are limited. At the same time, questions arise as to when elevated microbiological risks return to normal - that is, when is it safe to return to flooded areas? The researchers will collaborate closely with colleagues in Hunan and neighboring provinces to develop models capable of estimating the risk of Cryptosporidium exposure in drinking water following the flood. Cryptosporidium is an important organism to study because it is a high priority pathogen for US and Chinese risk managers, it is a documented cause of acute diarrhea during floods, it persists in the environment under harsh conditions, and it is highly resistant to disinfectants used to treat drinking water. Even under non-flood conditions, the pathogen threatens delivery of safe water in China, the US, and in drinking water systems throughout the world. The emergency situation in Hunan provides a narrow window of data availability in which environmental monitoring data can be obtained at key locations throughout the flood zone. These data will be used to develop and evaluate models of flood discharge, and Cryptosporidium contamination, fate and transport. The risk of Cryptosporidium oocyst ingestion through drinking water will be calculated under flood conditions and compared to nominal flow conditions to assess the role of the flood in elevating or lowering risk. Researchers will examine the role of specific landscapes in attenuating or intensifying risk under flood conditions. Finally, the models will be used to isolate the role of specific processes (like dilution of pathogens under heavy flows) that drive flood-related risks, and the time required for Cryptosporidium oocyst concentration to return to pre-flood will be examined in relation to the location of sources of contamination and factors that affect Cryptosporidium survival in the water column.

Results from the project will be highly relevant to devising strategies to moderate future flood risks in flood-prone regions. The researchers will develop new tools for the modeling and prediction of flood-related microbiological risks that will improve our understanding of how extreme events can alter microbiological water quality. The research will immediately benefit the residents of southern China through improved characterization of flood-related risks in the flood-prone regions of Hunan. Significant benefits will also accrue to populations affected by flooding in the US and elsewhere. Determining when it was safe to return post-flooding was a challenge following Hurricane Katrina, the Mississippi river floods in 2011 and in many similar circumstances historically. Thus, the fundamental advancements of scientific knowledge on flood-related microbiological risks from this project will have benefits outside of Asia, improving our response to flood conditions in the US and elsewhere through improved understanding of how pathogens spread during floods, and how the associated microbiological risks can be minimized.